Children's Spelling

Over the past 20 years or so, there has been great interest in how children learn to read and write and the kinds of difficulties they face. Although a great deal of research has been done on reading, writing and spelling have been somewhat neglected. This research fills that gap by studying how children learn to spell in English. This research focuses on normal kindergarten and first grade children, children who are just beginning to learn how the English writing system works. Treiman has previously studied the spellings that were produced by a group of first grade children in their everyday classroom work. The results show that spelling is not purely a visual process, as is often thought. Rather than memorizing the spelling of each specific word, children construct or invent spellings for words based on the words' sounds. This research will use experimental methods, thus complementing the earlier naturalistic work. In the experiments, children will be asked to spell words containing particular sounds and to make judgments about the sounds in those words. Together, the naturalistic and experimental research can yield a better understanding of children's spelling than either approach could achieve alone. Some experiments will study systematic spelling errors. Sometimes, children represent a sound with the wrong letter, as when they spell "city" as CIDY or "boy" as BOE. In other cases, children fail to spell a sound altogether. For example, the "s" sound is omitted in the spelling BET for "best". In still other cases, children use a single letter to stand for two sounds. In CRT for "cart", for example, the child uses the letter r to represent both of the sounds in the letter's name. Other experiments will also study children's learning of English spelling constraints. For instance, there are certain constraints on the types of letter sequences that may occur in words. For example, double letters may occur in the middles and at the ends of words, as in "banner" and "tall", but rarely occur at the beginnings of words. Finally, still other experiments will study children's learning of another aspect of the English writing system. Units of meaning are often spelled in a consistent manner, even when their pronunciations change. For example, the past tense ending is spelled the same way in "jumped", "cleaned", and "floated", but is pronounced differently in the three words. Together, the results should help to show why English is so hard to spell. The results should also help to suggest how some of children's difficulties in learning to spell can be overcome. They should even be useful in the diagnosis and treatment of children with severe learning problems.